Structural Studies in Alicyclic Systems (Chemistry)

The research to be undertaken on this project is in the general area of alicyclic chemistry. Two areas of research will be pursued. First, organic synthesis at high pressure (15 kbar, 1.5 GPa) will be studied to develop reaction processes which can be run under mild temperature conditions with hindered substrates. New studies will be undertaken to evaluate the effect of pressures up to 1,000 kbar under varying temperature and time conditions. New varieties of compounds will be prepared which will be of structural and/or biological importance. Second, the total synthesis of alicyclic natural products will be pursued. Particular attention will be given to biologically active materials with interesting structures, such compounds as large ring cembranoids from insects and the ophiobolin sesterterpenes from pathogenic fungus. This project is directed towards the development of new synthetic methods, which will permit the preparation of new materials of biological and theoretical interest.